Ion-Beam Scattering and Modification of Thin Film Growth: From Atomistics to Applications

9810058 Barnett This project seeks to use 1-3 kev He and Ar ion beams to monitor and modify semiconductor surfaces using the specular scattered beam intensity to quantitatively determine surface defect densities, surface compositions, and to influence the orientation of grains of polycrystalline thin films. Experiments to measure alloy composition, segregation, interdiffusion, desorption, and surfactant effects will be carried out. The combination of ion-beam orientation with annealing will also be investigated as a method for preparing highly-oriented semiconductor films. Potential applications for decreasing electromigration by eliminating high-angle grain boundaries in metal films will also be explored. %%% The project addresses basic research issues in a topical area of materials science having high technological relevance. The research will contribute basic materials science knowledge at a fundamental level to important aspects of electronic/photonic devices. Experimental tools such as those being investigated on this project allow atomic level observation of basic surface processes which when better understood provide the basis for advances in both fundamental and technological arenas. The basic knowledge and understanding gained from the research is expected to contribute to improving the performance and stability of advanced devices and circuits by providing a fundamental understanding and a basis for designing and producing improved materials, and materials combinations. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***